Acquisition of field geophysical equipment for teaching and research at Cornell University

0732677
Pritchard

This grant supports acquisition of a suite of field geophysical equipment for the Department of Earth and Atmospheric Sciences at Cornell University. The lead PI is an early career investigator (Ph.D. 2003). Equipment to be acquired includes: 1) a resistivity system; 2) a magnetometer; 3) a GPS total station; 4) 5 field hardened laptop PCs; and 5) a magnetic susceptibility system. The equipment will support faculty and student research that relies on remote sensing of near subsurface stratigraphy for investigations spanning the fields of geoarchaeology, physical volcanology, and paleoclimatology. A focus of the proposal is to reinvigorate the Cornell curriculum for geoscience and geophysics education through heavy reliance on student field training in exploration geophysical techniques.

***